New Firm Gestation: Influence of Founder's Gender

Researchers agree that new firm creation is a process, not an event. However, little is known about the formation stage when individuals first assemble properties needed to form viable economic entities. By not attending to this formation stage, researchers risk overlooking characteristics of sub-populations especially susceptible to early extinction. Women-owned businesses may represent one such group. The objective of this Research Planning Grant is to determine how organizations come into existence, and ascertain ways the gestation process may vary by factors such as gender of the founding entrepreneur. Besides contributing to theory development, findings from the proposed research have the potential for impacting public policy regarding the development of women-owned businesses. Business starts among women far outpace those of men, yet women seemingly still face significant economic and social barriers. Activities proposed for the planning grant period will: (a) provide insight into the causal processes underlying new firm gestation; (b) develop ways to assess those processes; and (c) resolve methodological issues that currently impede researchers in studying the formation stage. Principal among the activities is the analysis of data on entrepreneurs collected during a statewise survey. The investigator was co-principal investigator on this project. The planning grant would support further development of this research stream and the investigator's career development.